The Evolution of Cord Mechanics with Applications in Biomedical Engineering Research and Industrial Research and Development

9502123 Conway This CAREER type award is to support research in cord mechanics applied to biomechanics and in composite structures. In particular the role of helical construction of biological ligament and tendon structures will be evaluated. Existing models of tires exclude some aspects of the helically wound wires which may be important to their failure. The research will attempt to provide better failure models for the tire industry. In addition report writing assignments will be incorporated into the undergraduate design curriculae and mentoring will be increased at the graduate level. ***